Small Grants for Exploratory Research: Ductile Machining ofGlass

The goal of this research is to develop an analysis for the ductile/brittle transition in single point machining of glass and to determine the parameters governing this transition. This includes the threshold load, critical depth and width of cutting, and their relationship to the material properties and the physical machining process.